Dynamic Uncertainty Management for Large Scale Problem Solving

Current approaches to uncertainty management in AL and expert systems largely ignore the dynamics of large-scale problem solving. For example, much research has focused on the problem of computing the answer to a single query or set of queries, given a static problem model. However, advanced work in large scale problem solving, such as story and image understanding, reveals that such queries are interspersed in a larger stream of model specifications/reformulations and evidence assertions. This research has as its goal the understanding of the functionalrequirements for uncertainty management at this higher, task- oriented level, and the development of uncertainty management systems which provide efficient support for these requirements.